Direct Iron and Steel Making Technologies and Clean Steel, Award in Indian Currency

Description: In a program coordinated by Dr. R.J. Fruehan, ___________ Professor of Metallurgical Engineering at Carnegie Mellon University (CMU), Pittsburgh, PA, and Dr. S.K. Gupta, Director, Research and Development Centre for the Steel Authority of India, Ltd. (SAIL), U.S. and Indian scientists plan to jointly conduct research on steel making starting from raw material preparation to new methods for production of clean steel. The six planned projects are: Project U.S. Scientist Indian Scientist _______ ______________ ________________ 1. Surface P. Somasundaran R.P. Sharma Characteristics and Columbia Univ. SAIL Flocculation of Coal Fines 2. Plasma-Solid K.J. Reid S.K. Gupta Interactions Univ.of Minnesota SAIL 3. Clean Steels in R.J. Fruehan N.B. Ballal Combined Blowing CMU IIT, Bombay Steelmaking 4. High Alumina Slags D. Gaskell M.N. Thakur Purdue Univ. SAIL 5. Ladle Refining of R.J. Fruehan P.K. Rao Steel By Synthetic CMU IIT, Bombay Slag 6. Thermodynamics of R.J. Fruehan Brahma Deo Hot Metal with Soda CMU IIT, Kanpur and Lime Based Fluxes In these projects basic research will be carried out to build the knowledge base concerning the generic fundamental chemistry and processes necessary for future steel making under severe economic and environmental constraints. In particular development of coal in lieu of coke as the reducing agent will be studied since this is important to India and the U.S. Scope: The U.S.-India Program seeks to foster scientific _____ collaboration in areas where both countries can benefit. This case is a prime example. These projects were developed jointly during and following an Indo-U.S. Workshop on Steel Research held in India in 1986. The work will be carried mostly in India, especially large scale tests. The U.S. team will do supplementary research on their current domestic projects. This activity is likely to produce significant scientific results. Funding: These projects are being funded under two grants: INT-8818540 to CMU INT-8818256 to SAIL FY88-US$70,000 + $51,360 (in Rs.) $112,692 (in Rs.) FY89-US$57,000 (incl. $45,000 from MSME) $0 FY90-US$57,000 (incl. $45,000 from MSME) $0